MRI: Development of a Dynamically Adaptive Autonomous Antarctic Low-Power Geophysical Instrument Array for Space Science Research and Education

An interdisciplinary team of space scientists, computer scientists, and engineers will develop, test, and deploy a network of autonomous and dynamically adaptive, low-power geophysical measurement stations along the 40 degree magnetic meridian in the Antarctic. The network will consist of five new stations to be developed and manufactured over a four-year period. The goal is to provide an autonomous, low-power instrument platform capable of remote unattended operations in the Antarctic for at least three years. Each of the platforms will support a fluxgate magnetometer, an induction coil magnetometer, and a dual frequency GPS receiver. The new capabilities to be developed include (1) incorporation of an innovative new software-defined-radio based dual frequency GPS receiver capable of measuring ionospheric total electron content and scintillation characteristics, (2) dynamic adaptive data mining, (3) inter-station communication and dynamically adaptive data collection strategies, (4) a flexible interface to connect other low-power geophysical instruments, and (5) alternative satellite data retrieval and system control options.

Scientific motivation for the network is driven by the value of establishing a magnetically conjugate chain to the already existing chain of magnetic observatories operated by the Danish Meteorological Institute along the west coast of Greenland. The conjugate arrays will enable global (from the Antarctic to the nominally conjugate regions in the Arctic) investigations of the complex, multi-scale, electro-dynamic system that comprises the space environment of Planet Earth. Transformative science is likely to result from these new data sets that enable the development of our understanding of the fully coupled solar wind - magnetosphere - ionosphere - atmosphere system that incorporates both hemispheres realistically. This is the next major step required in the development of global space weather models, and the observations that will be provided from this new facility are fundamental to the adequate validation of these models.

Among its broader impacts, the new instrument platform will be of great value to other Polar geophysical measurement programs. The network will contribute data that are important to several major research initiatives of national importance including the NSF GEM, CEDAR programs, the National Space Weather Program, the NASA Living With a Star program, and the NASA THEMIS satellite program. Space weather affects a variety of technologies on which society relies, and there are increasing needs for reliable and accurate now-casts and forecasts of Space Weather. The data obtained from the network will be made available to researchers and students worldwide via web access through the Polar Experimental Network for Geospace Upper-atmosphere Investigations (PENGUIn) data portal. The project has an Education and Outreach component that, amongst others, will host 2 undergraduate students from minority institutions each summer to participate in the project. Graduate students will be employed by the project and mentored by the investigators on the project thus helping to prepare the next generation of geophysical scientists and engineers.